CAREER: Wavelet Theory and Applications in 3D Physical Simulation

The objective of this research is to conduct a study of wavelet
representations for complex surfaces and volumes with the goal of
demonstrating their potential for 3D scientific and engineering computing
applications. Multiresolution techniques recently described in the computer
graphics literature will be extended to develop high performance algorithms
and implementations for simulating the partial differential equations of
common physical processes on general three-dimensional domains, including
potential problems, scattering problems and problems in elasticity.
Emphasis is placed on unifying the mathematical analysis and
signal-processing perspectives of wavelets, as this provides new insights
for the large-scale simulation of a wide range of problems.

The research consists of two interrelated thrusts. The first develops the
mathematical foundations, including surface and volume wavelet constructions
for PDEs, practical discretization strategies for linear and nonlinear PDEs,
matrix compression, preconditioner design, adaptive refinement, accuracy
estimates and error control strategies. The second thrust focuses on the
practical issues of algorithm and data structure design, robust
implementation for large-scale problems involving complex geometry,
parallelization, and the interpretation and visualization of output aided by
the multiresolution representation. This will result in a suite of
multiresolution techniques and tools that provide (i) researchers with a
context for conducting domain-specific studies (ii) engineers with
application libraries for simulating large-scale real world problems and
(iii) students and professionals with an environment for learning about
wavelet theory and applications.

The educational objectives of this project are closely linked to the
research program. The continuing development of a course on wavelets and
filter banks will enable the dissemination of fundamental knowledge on
multiresolution techniques and it will serve as a conduit for the
integration of research experience into the curriculum. Additional courses
are oriented toward issues of computation and information technology more
generally within the graduate and undergraduate engineering curriculum. The
integration of educational and research activities will be facilitated by
seminars, short courses, and new and continuing collaborations with industry
and other institutions.